Dissertation Research: An Ethnographic Study of Chronic Degenerative Disease Patients in Oaxaca, Mexico

This project supports the dissertation research of a Harvard University graduate student in anthropology who will study the beliefs and experiences of middle-class cancer patients in a middle-sized Mexican city. The focus will be on the cognitive and social means used by people to cope with the disease. Methods include qualitative ethnographic participant- observation in hospitals and clinics and in-depth interviewing as well as surveys of clinic patients. This will be one of the first ethnographic studies of cancer patients that focuses on the middle-class, rather than the poor in a developing country. This research is important because cancer is a common yet dreaded disease. Increased knowledge of how people understand their illness and deal with it in various circumstances will proved insight into the human context of chronic illness.